World Technology (WTEC) Benchmarking

This project provides for international technology assessments and related workshop and staff support. While a division of Loyola College, the World Technology Evaluation Center conducted over 50 such technology assessments using a peer review methodology that many believe is the best single method for evaluation of research and development abroad. The objectives include seeking technologies to transfer to the U.S., evaluating the position of U.S. science and technology with respect to leading competitors, and seeking opportunities for international cooperation in research.